A Program for Deep Seismic Reflection Exploration of the Submerged Part of the Continental Lithosphere

EDGE is a proposed project to obtain deep seismic reflection data on the submerged part of the continental lithosphere. Four marine deep seismic reflection transects on the U.S. margins are proposed. This award will support the first two profiles. A unique feature of the project is that it will use commercially available multichannel seismic reflection acquisition capability, acquired on "ships of opportunity" to minimize obilization/ demobilization costs. Year 1 is expected to be devoted primarily to data acquisition in the Cook Inlet region of the Gulf of Alaska and offshore Chesapeake Bay. Year 2 will be devoted to data processing, analysis, and preparation of initial reports. Significant cost sharing for the Chesapeake Bay profile is being provided by Texaco.